SGER: Galeras Volcano 1991 Eruption Studies

In November, 1991 Galeras Volcano in Colombia showed numerous signs of impending eruption, very similar to those of the neighboring volcano Ruiz just before it erupted a few years ago with a loss of over 20,000 lives. This grant will enable the PI and his student to go to Colombia before any eruption comes and establish a small seismic network on the flanks of the volcano. They will then try to correlate seismic tremors with specific gas emissions as determined by COSPEC. This information about the relationship between seismicity and gas emission could be very important in attempts fo predict future eruptions of similar kinds of volcanoes. If no eruption occurs while the PIs are there, local geologists will use the equipment to make measurements when and if it does occur.